Conference on Harmonic Analysis; Calderon-Zygmund and Beyond, Dec. 6-8, 2002

ABSTRACT

PIs: Roger Jones and Marshall Ash

Proposal: DMS-0229157

Institution: DePaul University

This proposal requests funds for a conference on Harmonic
Analysis to be held at DePaul University, Chicago, during
the period December 6--8, 2002. Several top researchers in
Harmonic Analysis from the Calderon-Zygmund school will
participate. The conference will include eight one-hour
talks over the three days plus several half-hour
talks. In addition, A problem session in the afternoon of
the last day is planned.

A substantial part of NSF funds will be use to support
graduate students, junior faculty, woman and minorities.